Assessment of Transportation Problems Incurred In the Aftermath of San Francisco Earthquake

Most transportation actions regarding disaster conditions cannot be tested or evaluated in a laboratory or inferred from normal situations. They have to be acquired through real-life events which in the case of an earthquake is a rare occurrence. The most significant events in the transportation and transportation related-field that followed the October 17, 1989 San Francisco Bay Area earthquake is the collapse of transportation facilities, particularly bridges, which caused discontinuity in the transportation network. These failures impacted several emergency management functions such as search and rescue, fire fighting and site evacuations. They also restricted the movement of people and goods among the various communities of the Bay Area. The main focus of this project is to study and assess the impacts of transportation system failures on emergency management functions and to evaluate the development and implementation of various traffic diversion strategies carried to provide accessibility and mobility to the travelers in the affected region. The developed strategies and models will enhance the work conducted after the Mexico City earthquake in this field, and test its applicability to the U.S. environment. The results will assist emergency managers and planners in the location and allocation of personnel and equipment, in the dispatch of emergency vehicles, and in the development of traffic diversion strategies that will avoid bottlenecks and minimize delays. They will also bring into focus the tremendous transportation costs incurred by business as well as by individuals as a result of the failure of key elements of the transportation network.